Forum on Inclusive STEMM Entrepreneurship

This is a project to offer the Forum on Inclusive STEMM Entrepreneurship (FISE), a novel effort to broaden the participation of underrepresented minority women in STEMM entrepreneurship and to enhance the diversity of the science and engineering workforce. Through a convening of educators, entrepreneurs, aspiring entrepreneurs, industry leaders, investors and policy experts, entrepreneurial education thought leaders, and inter-sectionality scholars the PI proposes to use this conference as a platform for building capacity in the preparation and development of future entrepreneurs from underrepresented groups. The PI also seeks to contribute to the emerging field of research that bridges tech entrepreneurship and education policy.

The proposed forum has the potential to advance knowledge in the field of entrepreneurship education and engineering education. Given the dearth of research-based interventions to broaden participation in tech entrepreneurship, this conference offers an opportunity for participants to contribute to the leading edge of research and interventions in this field.

The convening and associated activities will leverage the social capital of knowledgeable experts in the academy and industry, investors, entrepreneurs and aspiring entrepreneurs to address critical needs of the nation that relate to enhanced global competiveness, an improved national economy, and the participation of underrepresented cohorts in entrepreneurship and commercialization